RUI: Microbial Assimilation of Nitrate in Disturbed and Undisturbed Forest Ecosystems

A thorough understanding of the factors controlling nitrate pool sizes is critical to minimizing such undesirable processes as nitrogen loss, nitrate pollution of ground water, and trace N-gas production. Using recently developed 15N isotopic dilution techniques that allow measurement of gross N-transformation rates in relatively undisturbed soil, these investigators have provided evidence that microbial assimilation of nitrate is a significant component in the inorganic N cycle of three forest ecosystems. Although microbial assimilation of nitrate has generally been discounted as being insignificant in forest soils, they believe that there is sufficient evidence from this and other studies to indicate that microbial assimilation of nitrate may be a primary regulator of nitrate pool sizes. This project will examine forest sites along two transects (in Oregon and New Mexico) and determine the effect of heterogeneity in carbon and nitrogen supply on assimilation rates; the influence of temperature and moisture on gross rates of inorganic N assimilation and production; the specific microbial populations responsible for nitrate assimilation; and the role of plants as sources of carbon versus competitors for nitrogen. This study will provide information that is necessary for the formulation of process-based models predicting the impacts of disturbance on N cycling as well predicting potential feedback loops that will develop as C and N inputs to ecosystems shift during global climate change.